Continuum Models for Smectic A Liquid Crystals: Rod-like or Bent-core Molecules

Smectic liquid crystals are remarkable examples of a geometrically frustrated, multi-layer, soft-matter system and have attracted a lot of attention over the years due to potential technological applications. The purpose of this project is to study continuum models for smectic liquid crystals formed by rod-like or bent-core molecules. The equilibrium structure of the smectic liquid crystals are minimizers of the energy functional or solutions of the Euler-Lagrange equations. Applying tools from calculus of variations and nonlinear partial differential equations, the investigator aims to provide a rigorous understanding of interesting physical structures observed in experiments and numerical simulations. In addition, the project provides cross-disciplinary training for postdocs, graduate students, and undergraduate students.

The first research direction of this project focuses on nonlinear models for smectic liquid crystals formed by rod-like molecules. The investigator first studies a nonlinear approximation model for smectic liquid crystal, addressing problems regarding the compactness of sequences with bounded energy and the gamma limit of the proposed model when sending the penetration length to zero; secondly, the PI extends the study to the full nonlinear model, addressing questions related to the compactness of sequences with bounded energy, sharp lower bound, gamma limit as well as properties for some explicit examples which are solutions of the associated Euler-Lagrange equation of the energy functional. The second direction of the project addresses continuum models for ferroelectric bent-core smectic liquid crystals in thin planar cells, with a focus on the rigorous analysis of the equilibrium structure of the polar director and dielectric response.